Molecular Based Quantum Antiferromagnets: Design, Synthesis, and Experimental Investigations

9803813 Landee This is a collaborative project with solid state chemistry and condensed matter physics components. New materials will be synthesized which contain arrays of magnetic atoms which interact antiferromagnetically in one-dimension (chains) or two-dimensions (layers). These magnetic materials are predicted to have novel quantum mechanical properties. For example, measurements of their magnetic properties will provide important tests of theoretical predictions of the effects of quantum fluctuations. Such tests have not been possible to date because appropriate materials have not been available. Both the static and dynamic magnetic properties of the new materials will be examined via magnetization, susceptibility, and specific heat studies, as well as NMR, EPR, and neutron scattering experiments. New materials are being designed and synthesized to provide appropriate 1- and 2-dimensional S=1/2 antiferromagnets. The principles of molecular- based magnetism are employed to link transition metal ions together in the appropriate lattice using organic molecules. The study of the magneto-structural relationships in the new materials will be emphasized to aid in the creation of new generations of magnetic materials. While the focus is on fundamental magnetism the results are potentially of interest in the general are of nanotechnology or artificially structure materials where atoms might be individually arranged to provide lower dimension structures for technical applications. %%% This is a collaborative project with solid state chemistry and condensed matter physics components. While properties of individual atoms can be analyzed in some detail by the methods of quantum mechanics, our understanding a large numbers of atoms linked together in different geometries is a much more difficult task. This fundamental research project will study the quantum mechan ical properties of magnetic systems where magnetic atoms interact with each other in one-dimension (chains) or two- dimensions (layers). In such geometries, quantum mechanics makes novel predictions that have not been tested experimentally because of the lack of appropriate materials. This collaboration has designed and created new magnetic layers and chains using organic molecules to link magnetic moments. The project will provide excellent training of graduate students in the areas of materials synthesis and characterization. While the focus is on fundamental magnetism the results are potentially of interest in the general area of nanotechnology or artificially structure materials, where atoms might be individually arranged to provide lower dimension structures for technical applications. ***